The development and implementation of algorithms to investigate drop fragmentation under shear for viscoelastic liquids with surfactant

The proposed research concerns the development and implementation of new algorithms for the
numerical investigation of drop breakup under shear. The investigator has used the
volume-of-fluid (VOF) approach to simulate Newtonian liquids, including the effect of
inertia, and insoluble surfactants at low concentration. A fixed regular grid is used. The
motion of fluid interfaces is tracked by means of a color function, which represents the
volume fraction for a fluid in a grid cell. At each time step of the numerical simulation,
the color function is advected with the flow, and gradients of it are used to reconstruct
the position of the interface and to compute the interfacial tension force. In prior work,
the first and second derivatives of the color function have been approximated by finite
differences. However, since the color function is actually a step function, the use of finite
differences for derivatives in nonlinear combinations such as curvature is problematic. The
conventional remedy is to use a smoothed color function. This, on the other hand, requires a
length scale of smoothing which is small relative to physical scales but still large relative
to the mesh size. In practice, smoothing introduces numerical diffusion into the interfacial
tension force. In drop breakup simulations, for instance, smoothing on the order of two or
three times the mesh size still leads to non-convergence of satellite drop volumes with
spatial mesh refinement. The investigator has recently developed the method PROST, which is a
parabolic representation of the interface in the surface tension force and which requires no
smoothing. The interface is reconstructed from a least square fit of a paraboloid to the
values of the color function in a given cell and its neighbors, and the curvature and normal
are retrieved from this paraboloid. This leads to convergence of daughter drop volumes with
mesh refinement. The objective of the proposed research is to develop algorithms with the VOF
- PROST framework to simulate viscoelastic liquids with surfactants, and to implement the code
on large-scale parallel processing systems. The mathematical model allows the liquids to have
memory, first and second normal stress differences, and shear-thinning. A nonlinear
constitutive model is used for soluble surfactants, with advection along the interface and
exchange with the bulk.

The breakup of liquid drops suspended in another liquid occurs in a number of chemical
processes, such as the commercial mixing of molten plastics to form new materials in the
recycling industry. Upon mixing, the size and distribution of the daughter drops influence
the quality of the product, and therefore it is important to be able to control these
outcomes. This is difficult to predict for a commercial mixer because of the complexity of the
fluid flow, resulting in a trial and error approach. The investigator's starting point for a
theoretical prediction is to study the deformation of a single droplet in a well-defined flow
field. Numerical algorithms are devised to track the history of drop deformation and breakup,
which is an important contribution to the fundamental knowledge base of manufacturing
processes that involve mixing two immiscible liquids. The success of this work depends on the
physical modeling of the liquids to compare with available experimental data, the accuracy of
the algorithms to solve the equations, the implementation on high-performance computing
platforms, and established collaborations with engineers who perform controlled experiments. A
broader impact is that the algorithms apply to a wider class of fluid-fluid systems, such as
the processing of physiological fluids. The participation of a postdoctoral research
associate and a graduate student is an essential educational component of the project.